Ship Operations

9707198 LEINEN The University of Rhode Island will operate the research vessels ENDEAVOR in 1997 in support of a variety or oceanographic research programs for the federal agencies. The ENDEAVOR is a 184' general purpose research vessel with a schedule of 188 operational days in 1997 of which 119 days are in support of NSF-sponsored research. The ship will support cruises in the North Atlantic for NSF and ONR. ***